SCENE: The USC Experimental Networking Environment for Protocol and Database Research

This award is for the acquisition of a network testbed for the experimental networking and distributed database research at the University of Southern California. The primary research activities are concentrated in two main areas: Network Control Protocols and Distributed Databases. The main feature that these two diverse research areas share is a need to (1) solve problems involving multiple nodes, (2) complement existing modeling, simulation, emulation, and small scale implementations with multi-node prototypes, (3) isolate the resulting network from the campus production network, and (4) employ a support staff to maintain and operate the network. The study of distributed networks is important because of the wide availability of inexpensive workstations that can be easily linked together. Not so easy is how to utilize these networks effectively. The study of network protocols is critical to this task as is the study of distributed databases. This award supports both areas.